Mathematical Sciences: REU: Research Experiences for Undergraduates: Nonlinear Phenomena and Parallel Processing

This grant provides a research experienc for eight undergraduates for an eight week period during the summer. Throughout this period the students will attend a seminar given by various experts in the field. They will also participate in a computer laboratory. Toward the end of the program they will be required to give reports on the work that they have done. One of the goals of the program is to have each student write a short manuscript suitable for publication. They will have access to the considerable computing power at the University of Colorado to carry out their projects. The focus of this grant is on developing parallel algorithms for problems in nonlinear dynamics. These are two rapidly growing, highly exciting fields of applied mathematics which are quite accessible to undergraduates. One of the areas of research will be in polynomial root finding. The other area comes from the theory of odinary differential equations which exhibit strange attractors and chaotic dynamics. These both are areas for which parallel processing has a nice potential to increase the efficiency of the algorithms and for which there is a great deal left to be explored. This program will bring the students into an interesting area of mathematics and computation. With the close association of the various faculty members the experience should be a very valuable one for the students. This proposal is being funded through the Research Experiences for Undergraduate program (REU) and represents a good example of the goals of the program.